NSF Young Investigator

This NSF Young Investigator award supports the research and teaching interests of Ludwig C. Nitsche of the University of Chicago. The nature of the recipient's teaching plan involves "one day at a time, one student at a time" in fundamental principles, computational opportunities, technological innovation, and undergraduate research projects. His research includes antipolarization dialysis for fractionating complex mixtures and acoustic diffusion gates for microporous membranes.